Microepitaxy and Microprocessing for Ultrastructures and Devices in III-V Compound Semiconductors (Materials Research

This proposal describes basic research on low-dimensional heterostructures and quantum structures, hereafter termed ultrastructures. The ultrastructures will have radically new properties introduced by their new degrees of quantization. The research will involve an integrated investigation of formation, fundamental characterization and device implementation of these extremely small structures. Ultrastructure microfabrication will be achieved by in situ epitaxial crystal growth and high- resolution focused ion beam methods. Characterization of the structures will be carried out using sensitive, spatially resolved structural and spectroscopic methods. The novel physical properties originating from carrier confinement will be investigated and incorporated in exploratory electronic and photonic devices.